Harmonic maps into and between singlar spaces

Proposal DMS-0306212
PI: Chikako Mese (Connectitcut College)
Title: Harmonic maps into and between singular spaces

Abstract

The principal investigator proposes to study harmonic maps into and
between singular spaces. The classical theory of harmonic maps deals with
maps between Riemannian manifolds. More recently, the importance of
considering singular domains and targets has been discovered. Harmonic map
theory in singular spaces was initiated by Gromov and Schoen and their
analysis of harmonic maps into non-positively curved Riemannian simplicial
complexes combined with Corlette's vanishing theorem is the basis of their
proof of p-adic super-rigidity. The study of harmonic maps into singular
targets was further generalized by Korevaar and Schoen and independently by
Jost. Further generalization is to consider singular domains. In this
project, we study harmonic maps from a simplicial polyhedron to a metric
space of non-positive curvature. A fundamental question is the regularity
of these maps, and our goal is to show that these maps are smooth enough to
be useful in many applications. In particular, we hope to bring harmonic
map theory and holomorphic quadratic differentials into the study of
finitely generated groups. More precisely, we will use harmonic maps from a
two-dimensional simplicial complex to understand finitely generated groups
from their actions on R-trees. This point of view is important in the
study of combinatorial group theory and three-dimensional topology.
Harmonic maps will also be used to investigate compactifications of the
Teichmuller space of a compact surface. Finally, the study of minimal
surfaces will be considered as an extension of the generalized harmonic map
theory.
The proposed work contributes to the basic understanding of geometric
variational problems. Mathematicians have devoted large effort in
developing variational methods and the successes of these investigations
have laid the foundations of many branches of sience. There is a natural
notion of energy associated to maps between certain spaces and, in this
project, we study its critical points which are called harmonic maps. They
have shown to be extremely useful as an analytic tool in geometry. The
generalization of harmonic maps between smooth spaces to non-smooth spaces
promises to yield many more applications. We investigate the extent to which
the classical methods in harmonic maps can be carried over to the singular
setting. The applications of the generalized theory make these questions
relevant to a broad mathematical community.